Attendance at the 8th International Brick/Block Masonry Conference in Dublin, Ireland September 1988

This award is a travel grant for two researchers to participate in the 8th International Brick/Block Masonry Conference to be held at Dublin, Ireland in September 1988. A visit will also be made to the University of Saarbruchen, Institute for Nondestructive Evaluation, West Germany.